PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research fellowship awarded to Vidya Venkateswaran is "Combinatorial representation theory." The host institution for the fellowship is Massachusetts Institute of Technology, and the sponsoring scientist is Dr. Pavel Etingof.